XPS: FULL: Emerging Nonvolatile Memory for Analog-iterative Numerical Methods

A new type of computer memory - crosspoint resistive memory - has
emerged as a likely candidate to replace current memory technology in
future computing systems. This memory allows for potential computer
designs with high memory capacity and with memory incorporated
directly into processing units. Novel thinking about computational
methods is required to exploit the potential of these novel
systems. This project will explore new, fundamental methods in the
field of numerical optimization that are suited to implementation on
computer systems that incorporate crosspoint resistive memory. The
field of optimization is chosen as a testbed because of its importance
to a wide range of scientific disciplines.

Crosspoint memory has unprecedented advantages in capacity and access
latency. Substantial innovation is required to fully exploit the
potential benefits of integrating memory into processing units;
current algorithms are unsuitable, because they are constrained by the
von Neumann bottleneck. The PIs will design the Gigascale Analog Iterative
Network Solver (GAINS), a system architecture to enable efficient
in-situ data processing. GAINS alters the application-, architecture-,
and logic/circuit-level abstractions that enable designers and
developers at each layer to work independently. (i) It promotes
matrices to a first-class data type. (ii) It integrates computataion
and memory, avoiding pitfalls of conventional memory
hierarchies. (iii) It exploits multi-valued representations in storage
and computation. (iv) It replaces binary logic circuits with
multi-valued analog circuits, reducing area overhead and power
consumption. The PIs will investigate the effects of this changed paradigm
on the design of algorithms in numerical optimization and machine
learning.